Arithmetic Cycles, Eisenstein Series, Automorphic L-Functions, and Complex Multiplication

DMS-0245406
Yang, Tonghai

Abstract:

Title: Arithmetic Cycles, Eisenstein Series,
Automorphic L-Functions, and Complex Multiplication

This project involves the connections between generating functions
for height pairings of arithmetic cycles on certain Shimura
varieties, on the one hand, and second terms in the Laurent
expansions of elliptic modular and Siegel modular Eisenstein
series at certain critical points, on the other. The generating
functions can be viewed as arithmetic analogues of theta functions
and can be use to define arithmetic analogues of the classical
theta correspondence, now taking certain types of modular forms to
elements of arithmetic Chow groups. One application is to prove a
version of the celebrated Gross-Zagier formula without base change
the L-function. It is also hoped that one may
ultimately obtain information about higher dimensional analogues
of the Gross-Zagier formula and the Birch-Swinnerton-Dyer
conjecture. Another part of the project is to use arithmetic of
genus two curves to study cryptography, which has very practical
application in electronic communication.

In the later part of the 20th century significant advances were made
in developing a `number theoretic' geometry, in which an additional
dimension is added to carry information involving the interaction
between the geometry and prime numbers. To a point on such a
space, one can attach a number call its height, which is a measure
of its `arithmetic complexity'. More generally, heights can be defined
for higher dimensional objects, curves on surfaces, for example. The
present project studies combinatorial relations among such heights,
which reflect hidden structure carried by the spaces of `number
theoretic' geometry. One of the most important part in electronic
communication such as credit card processing is security, which is
done by means of cryptography. Since late 80's, it is found that
number theory can be applied to obtain highly secure cryptographic
system.